IDPU/WG: Math Experiences for Girls Achievement Camp

Math Experiences for Girls Achievement Camp (MEGA Camp)is a summer enrichment program in mathematics and science for 6th grade girls, aimed at attracting minorities. The home site of this project is California State University at Hayward (CSUH). Objectives are to improve recruitment and retention of girls in science, engineering and mathematics (SEM) education and careers by increasing awareness of career options, demonstrating that mathematics can be fun and challenging without being intimidating, strengthening basic skills, and improving work- ethic, attitudes, self-image, and written and verbal communication skills. Daily activities will alternate between field trips to local companies or organizations and specifically designed follow-up lessons. Field trip sites will be the NASA Ames Research Center, The Technology Museum of Innovation, The Microscope and Graphic Imaging Center (MAGIC), and Dreyer's Grand Ice Cream Plant. Each field trip cycle will have four components: an introduction, a site visit, a follow-up activity, and an update of the MEGA Camp website.